Group Travel for US Participants in the XXV Interamerican Congress of Psychology to be held in Puerto Rico, July 7-14, 1995

9521391 FOWLER This award will allow 20 US psychologists, half of them within ten years of their Ph.D., to travel to the XXV Interamerican Congress of Psychology in San Juan, Puerto Rico, July 9-14, 1995. This Congress will provide a forum for North American scientists to make contact and share their experience with their Latin- American counterparts. ***